Outdoors Indoors -- An Interactive Natural Science Exhibition for Young Children

The Oregon Museum of Science and Industry (OMSI) will develop "Outdoors Indoors, an Interactive Natural Science Exhibition for Young Children," ages 3-8, and their families. Two 2,500 sq. ft. versions of the exhibition will be developed -- one to be installed at OMSI and the other to travel. Building on children's innate curiosity about the natural world, the exhibition invites visitors to explore a woodland environment where they can develop process skills and learn natural science concepts. The exhibition will also focus on ways that parents can help encourage their children's science learning, both through exhibit activities and through exploration of the natural world outdoors. Bilingual text (English and Spanish) will help make the exhibition accessible to a diverse audience. Ancillary materials for families and educators will further enhance learning.